Support for a Joint TMS The Minerals, Metals, and Materials Society/Society of Plastics Engineers Conference on Polymer Materials

Support for a joint TMS The Minerals, Metals, and Materials Society / Society of Plastics Engineers Conference on Polymer Materials
November 4-8, 2001
Indianapolis, IN

P.I.: Dr. L.S. Schadler
Associate Professor
Materials Science and Engineering Department
Rensselaer Polytechnic Institute

This award provide funds to support a joint Minerals, Metals, and Materials Society / Society of Plastics Engineers conference on polymer materials. It will bring together traditional metallurgists and ceramicists who currently working in the polymers field and traditional polymer engineers to discuss several aspects of polymer materials. The funds will be used to support graduate and undergraduate student travel and participation in the conference. There will be a graduate / undergraduate student poster contest as part of the symposia and graduate students will also present in the main symposium.